A Reduced Basis Approach to the Design of Distributed Parameter Controllers

9622842 King This focus of this project is the development of a reduced basis approach to controller design for distributed parameter systems described by partial differential equations (PDEs). The first step in the framework involves using distributed parameter control theory for PDE control problems to obtain an explicit infinite dimensional control law. The controller is based on compensator design so that state estimates are used (requiring only a small number of state measurements) as opposed to full-state feedback, in which the full distributed state must be known. The next step relies on obtaining integral representations of feedback control operators in terms of feedback functional gains. The use of the special spatial structure of these functional gains allows for approximation schemes which result in low-order controllers. Moreover, analysis of local dynamics motivated by such approximations will give insight into sensor placement and design. This work provides a framework for practical controller designs which are computationally efficient. Moreover, it provides answers to questions regarding sensor design, specifically regarding types and locations of sensors within a moving fluid. %%% This project will development a practical framework for the control of complicated systems for which traditional approaches either are limited in scope or are impractical. This framework provides a computationally quick and efficient control design based on fundamental mathematical concepts. One of the principal applications of this research will be to the design and placement of control devices for the control of high performance aircraft, through a better understanding of the interactions of the aircraft with the surrounding fluid. ***